Interfacial Transport in Reversed Micellar Extraction Processes

This project consists of combined theoretical and experimental studies of the rates and mechanisms of interphase mass transfer in reverse micelle systems in contact with an aqueous phase. A range of solutes from low molecular weight, water soluble compounds up to globular, water soluble proteins will be studied. It is hypothesized that a different mechanism for mass transfer exists for low molecular weight compounds as opposed to the proteins. For the low molecular weight compounds it is proposed that reverse micelles form because of random thermal fluctuations of the interface which periodically result in part of the interface and the immediate aqueous phase breaking off to form a reverse micelle with some of the solute trapped in the interior. For the higher molecular weight proteins, it is hypothesized that the approach of the protein to the interface results in the spontaneous breaking off of part of the interface to form a reverse micelle, with the protein trapped in the reverse micelle. Theoretical models for these two different mechanisms have been outlined. The phenomena should exhibit very different dependence on factors such as concentration and temperature, so they should be easily distinguished if the mass transfer rate can be measured accurately. An innovative technique for measuring the mass transfer rate has been proposed for these experiments: interfacial interferometry. The refractive index of a fluid is dependent upon the concentration of any dissolved species. A beam splitter will be used to pass one part of a beam of coherent light through a layer of the liquid close to the interface between the organic and aqueous phases; when joined with the rest of the beam interference bands will be produced whose separation will be proportional to the concentration of the layer of solution through which the beam passed. By carefully controlling the position of the beam parallel to the interface with an optical bench and equipment to isolate the system from vibration, the technique should be able to accurately determine concentration as a function of distance from the interface and as a function of time. This data then can be translated very accurately into mass transfer rates. Combined with the theoretical work, this should give a very complete picture of the interphase mass transfer in the systems studied and should enable the investigator to determine the mechanisms involved. This system is one of potentially great importance to the emerging biotechnology industry. Reverse micelle extraction of proteins from aqueous solution may develop into one of the most versatile and effective bioseparation technologies. This project should add greatly to its potential for early commercial applications.